Use of the Homeobox System to Elucidate Metazoan Sister-Group Relationships

Drs. Buss and Ruddle propose to initiate a research program directed at the resolution of the metazoan phyla. The current state of metazoan phylogeny is one of considerable uncertainty, with morphological and molecular data sets supporting conflicting hypotheses. They suggest that examination of Antp-class homeobox genes will prove capable of resolving the principle uncertainties. The extreme conservation of sequence of homeoboxes and their distinctive pattern of genomic organization provide an abundance of characters ideal for higher level phylogenetic analysis. In this proposal, they will re-examine the relationship between annelids and arthropods by characterization of the genomic diversity, organization, and sequences of homeoboxes from crustaceans, chelicerates, arachnids, molluscs, onychophorans, and annelids. Combined with the growing existing database on homeoboxes in cnidarians, nematodes, uniramians, echinoderms and chordates, this work holds the realistic promise of resolving not only the annelid-arthropod relationship, but also of shedding light on the relationships within and between the most speciose protostome and deuterostome phyla. The use of the homeobox system for phylogenetic analysis is particularly compelling because these genes have proved to be central components of the regulatory networks involved in early embryonic pattern formation and specification of cell fate. Thus, as our understanding of the molecular genetics of development grows, it is likely that the information generated in the progress of this research will permit study of the origin of the developmental novelty. To accomplish these goals it will require the collaboration of developmental geneticists and evolutionary biologists.